Gravity Theory at the Experimental Interface (Physics)

Professor Nordtvedt will complete development of a theoretical framework for analysis of second post-Newtonian order gravitation experiments and observations. This framework will be a natural extension of the successful parameterized post- Newtonian (PPN) metric field framework developed by the principal investigator and others, and which led to the complete empirical mapping of the first post-Newtonian order gravity, and will develop further those solar system observations which have already begun to require a second post-Newtonian order framework for their full elucidation.